Geomagnetic Position Fixing

NON-TECHNICAL ABSTRACT Proposal Number: 9808420 PI: John B. Phillips Many species of animals can return to their homes from great distances. Studies of homing orientation by the eastern red- spotted newt Notophthalmus viridescens will investigate the use of spatial variation in one component of the earth's magnetic field, magnetic inclination, to derive one coordinate of a bicoordinate navigational map used in homing. The newts responses to small changes in magnetic inclination in the laboratory will be used to estimate characteristics of the local gradient of magnetic inclination in the vicinity of their home pond. The estimates derived from the newts' behavior will then be compared with actual measured values of the spatial gradient of magnetic inclination to determine whether this gradient is being used to derive one map coordinate. In addition, since magnetic inclination is the angular difference between the magnetic and gravity field vectors, a separate series of behavioral experiments will be carried out to determine the sensitivity of the newt's gravitational responses. The proposed experiments will contribute to a better understanding of the role of the earth's magnetic field in animal navigation. In addition, because of the high level of sensitivity that is required to derive map information from the geomagnetic field, these experiments will help to determine the lower limits of the sensitivity of a biological system to variation in the geomagnetic field and, at a more general level, the precision with which the vertebrate nervous system can measure physical stimuli.